Managers of National Antarctic Programs

This project provides for continuation of support at the American Geophysical Union for the independent secretariat that has been established there to serve the Council of Mangers of National Antarctic Program (MNAP) and its Standing Committee on Antarctic Logistics and Operations (SCALOP). The MNAP concept, to provide for more effective communication and interaction among the national managers, has proven initially successful and has been recognized at the international diplomatic level, by the international scientific community, and also by the more than twenty national governments involved. The establishment of the MNAP secretariat at the American Geophysical Union has proven efficient and beneficial. In general, there has been a positive reaction to the association of the MNAP Council and its secretariat with the AGU and its objectives that embrace Antarctic research and the promotion of international cooperation. At the AGU the employment of the MNAP Executive Secretary and the provision of office facilities, clerical support and related services and equipment will continue. The AGU is well situated to provide the essential telecommunications along with computer, printing and publication, and associated services. Project plans also call for the AGU to process financial contributions from the various national managers and to assist as required with meeting arrangements.